Biological Materials Science Symposium,held at the 2011 TMS Annual Meeting San Diego, CA February 27 - March 3, 2011

ID: MPS/DMR/BMAT(7623) 1063946 PI: Kruzic, Jamie ORG: Oregon State University

Title: Biological Materials Science Symposium, San Diego, February 27 – March 3, 2011

INTELLECTUAL MERIT: The proposal will support the attendance of up to 12 students at the Biological Materials Science Symposium held in conjunction with the annual meeting of the Minerals, Metals, and Materials Society (TMS) in San Diego, February 27-March 3, 2011. The symposium is specifically designed to include a large number of student presentations, both oral and poster. A highlight of the symposium is the practice of awarding monetary prizes to the students who make the most impressive presentations. The symposium presents a healthy mix of talks by established investigators and younger investigators, including students and postdoctorals. It is particularly noteworthy for the large proportion of foreign scientists who will participate. Argentina, Turkey, India, Korea, the Czech Republic, Pakistan, Canada, Mexico, Ireland, Japan, China, Germany, Singapore, and Brazil are all represented on the symposium program in addition to US scientists. The symposium is divided into seven oral sessions that reflect the full range of activity supported by the NSF Biomaterials program. It will last for four full days and include approximately 70 oral presentations.

BROADER IMPACTS: This symposium provides an unusual opportunity for biomaterials research students to meet one another and to mix with established scientists from around the world. The possibility for so many students (20 or more students will be supported from all funding sources) to prepare for, present, and otherwise participate at a major international gathering will be extremely beneficial of their development as scientists. Students to be offered support will be selected with appropriate attention to broadening participation by members of underrepresented groups. In addition, established US scientists will benefit from the abundant opportunities the symposium will afford for international contacts.